Dynamics of Photodissociation of Small Molecules

This research, part of the Experimental Physical Chemistry Program, focusses on experimental and theoretical studies of photodissociation. Details of early-time dynamics on the potential surface(s) of the electronically excited state(s) will be elucidated by means of spectroscopic techniques. Photodissociation is a process of central importance in photochemistry and represents one of the most widely studied classes of unimolecular reactions. The approach relies on the use of absorption spectroscopy and/or Raman spectroscopy. The basic measurements are the absolute Raman cross-sections for long progressions in ground-state vibrational numbers. These measurements will be done at several wavelengths within the absorption system comprising the dissociative continuum being studied. The polarization properties of the scattered light will be determined along with the other measurements. The theoretical work which will be directly supportive of the experimental work, will include dynamic studies modelling the specific molecules for which experiments are being done. Molecules to be studied include: alkylhalides, hydrogen peroxide, ozone and acetone.